Time Series Particle Flux Measurements in the Sargasso Sea

This award continues, for another three years, the Ocean Flux Program (OFP) that has been in continuous operation near Bermuda since 1978. The OFP time-series of particle fluxes in the deep Sargasso Sea has produced a unique record of the "biological pump," a term used to describe the sinking of biological material from the surface to the deep ocean. The OFP provided the first direct evidence for seasonal changes in the deep ocean and tight links between deep ocean and upper ocean processes. The OFP provides clear evidence for the intensity of biological activity throughout the ocean's interior and the roles of key processes in biogeochemical and elemental cycling. The time-series is becoming long enough to study flux variability in terms of ocean basin-scale forcing, such as the North Atlantic Oscillation. The OFP sample archives are an unparalleled resource for study of temporal trends and the biogeochemical consequences of changing ocean chemistry. Education provided by the OFP broadens the experiences and science directions of many students (high school to PhD levels) and early investigators at critical career junctures.

The OFP time-series is the longest of its kind and unique in its focus on the deep ocean. As the record lengthens, investigators are better able to put into perspective the observed flux patterns in terms of the interplay between climate and ocean functioning. Colocation of complementary time-series -- Hydrostation S, the Bermuda Atlantic Time-Series (BATS), the Bermuda Testbed Mooring (BTM, 1994-2007), the Tudor Hill atmospheric tower and other sampling conducted near the Bermuda Time-Series Site -- and continuing advances in instrumentation on the OFP mooring present unparalleled opportunities to study coupling among ocean physics, biology and chemistry and material fluxes, and flux linkages with atmospheric and climatic forcing. As ever more sophisticated analytical tools are used to probe the recovered flux materials, new data continue to reveal novel information about ocean processes.